The Future of Cosmology with Clusters of Galaxies

AST-0507480
Evrard

The Future of Cosmology with Clusters of Galaxies, February 26-March 2, 2005.

Mapping the emergence of clusters of galaxies over cosmic time can precisely measure the growth rate of large-scale density perturbations in our universe, and thus test the nature of the dark energy and dark matter that dominate the universe and control its fate. Within the next decade, large astronomical surveys will identify the most massive clusters and thus produce samples of unprecedented statistical richness. At the same time, a better picture of the various matter components within clusters will come from multi-wavelength observations from the ground and space, and their interpretation by increasingly sophisticated numerical simulations.

This conference will mix theorists, observers, and computational modelers, and will help not only to define our current level of understanding of galaxy clusters, but also to prepare our path to extracting cosmological information from future large surveys.